CAREER: Signal Processing for Surfaces

Complex geometry becomes increasingly common in applications
arising in diverse areas. Plastic surgeons use computer
models to plan and perform operations. Mechanical engineers
virtually assemble and test cars and planes. Animators
create complex characters and effects indistinguishable from
reality. Geometric modeling has found its way into art
conservation: it is now feasible to create computer models
of sculptures capturing the most subtle of details.
Increasing complexity of geometric data calls for new
efficient representations and algorithms. The goal of our
long-term research plan is to study representations of
complex geometric data, surfaces in particular. We plan to
launch a broad and fundamental program to explore three
types of representations: piecewise-smooth surfaces,
multiscale surfaces and combined volume-surface
representations. Our approach to designing complex surface
representations is based on the concept of subdivision, a
powerful technique for modeling smooth surfaces. Subdivision
algorithms, while being more flexible and general, retain a
number of useful properties of splines. Most importantly,
the surfaces generated by these algorithms have a natural
hierarchical structure and are computed using efficient
local rules; subdivision algorithms can be easily extended
to represent multiscale data. The general goal of our
research is to design representations supporting efficient
algorithms for construction, rendering, manipulation,
processing, transmission and storage of surface data. We
will explore in close coordination both theoretical
properties of these representations (regularity, convergence
rates, fairness, stability) and their practical
applications. The specific goal of the proposed project is
to generalize to surfaces the signal processing tools that
were designed and are extensively used for images. The
research program is integrated with the education plan,
which has three main goals: (1) prepare graduate students
for research in computer graphics and related areas, (2)
incorporate the latest advances in research into curriculum
at all levels, including undergraduate, and engage motivated
undergraduate students in research (3) transfer knowledge
about latest research advances to professionals in the
industry.